Science and Technology Program

This project will develop a Digital Technology Institute and Youth Radio Science Desk as new components of the existing Youth Radio organization. The project's Digital Technology Institute and Science Desk will train and engage 450 low-income and underrepresented youth ages 14-24 in Los Angeles, California; Atlanta, Georgia and Washington, DC. An additional 300 youth will be engaged through quarterly community outreach programs. Youth Radio currently reaches wide audiences through traditional media such as NPR and emrging media such as podcasting and vodcasting. This project will produce 60 short-format radio programs for distribution on NPR, iTunes and MTV Interactive, as well as other distribution outlets. Organizational partners include media organizations, scientists and youth organizations around the country, universities and technical partners such as sound and animation studios.